Mathematical Sciences: Harmonic Analysis, Special Functions and Separation of Variables

The principal investigator will continue studying the relationship between symmetries of various fundamental partial differential equations and q-difference equations, the coordinate systems in which it is possible to separate variables and the properties of the special functions that solve the separated equations. In particular, the principal investigator will determine a practical definition of variable separation that applies to all systems of partial differential equations. Next he will attack the problem of intrinsic characterization of separable coordinates. Finally he will determine the special functions that arise as solutions of the sets of separated equations and study their properties.